Postcollapse Evolution of the Cores of Massive Stars

Bruenn will continue his theoretical work on the collapse and supernova explosion of a massive star. Important are an improved equation of state and better understanding of the role of neutrinos in sustaining the outward moving shock. The result should be a reliable computation of the explosion all the way to the time when the shock approaches the surface. The supernova explosion 1987A was unique not only because it was relatively near and bright but also because it yielded a measurable flux of neutrinos, the elusive particles that inform us of the deep interiors of the Sun and now of exploding stars. Thus it is now appropriate to improve the theories on the origin and effects of the neutrinos in exploding stars. In particular, the neutrinos may play an important role in sustaining the stellar explosion, which might otherwise falter unspectacularly. Bruenn is an expert in the relevant physics and will continue his modeling of the supernova explosion and its neutrinos.